Doctoral Dissertation Research: An Interdisciplinary Study of Agricultural Animal Science

The proposed research on Agricultural Animal Science in the US involves multiple methods: historical research at four American archives, oral history, observation at multiple lab sites (including a cloning lab).

The research will result in a dissertation and a trained professional.